Mathematical Sciences: Problems in Stochastic Optimization

This project will study stochastic optimization from the point of view of recursive algorithms with improved convergence speed, asymptotic properties of identification procedures for distributed parameter systems, algorithms for adaptive filtering and nearly optimal controls for differential delay systems with wideband noise. An attractive and easily implementable stochastic approximation algorithm will be analyzed under correlated noise processes. The idea is to take the average of the iterates obtained in the classical approximation approach without using "prewhitening". Dealing with the identification algorithms for distributed systems, a functional invariance approach will be taken. The resulting properties will help to get a better understanding on the rate of convergence issue. In the adaptive filtering problem, algorithms with delays and projection procedures using "sign" will be investigated. Sufficient conditions for with probability one convergence will be derived. Nearly optimal controls for differential delay equations subject to random perturbations and with a small parameter will be developed by means of weak convergence methods and the use of relaxed controls. Applications of these studies are found in areas ranging from the analysis of financial markets to the construction of more precise software for radars.